Learned Helplessness and Stressor Controllability: Behavioral and Neurochemical Consequences and Determinants

One of the most important factors in determining an individual's reaction to a stressful event is the expectation about that event: Does the individual have control over the stressor, or does he not? When humans or animals are exposed to stressful events over which they have no control, they experience a number of behavioral and physiological disturbances which do not occur if they DO have control, even if the stressors are physically identical. Such disturbances, and the theoretical entities thought to produce them, are widely believed to be important (and alterable) causes of depression, anxiety, urban stress, etc. It is therefore important to understand the mechanisms by which the controllability vs. uncontrollability of stressors alters both behavior and physiological functioning. Using a variety of experimental approaches, Dr. Maier has already produced an extensive behavioral groundwork for the current studies. He is now pursuing several major lines of research, all directed at answering this fundamental question: What determines the expectation of controllability, and its attendant consequences? Dr. Maier is carrying out four related sets of studies: 1) The role of the neurotransmitter norepinephrine in controllability; 2) the relationship between stressor controllability and spinal cord processes that regulate pain perception; 3) the role of stressor controllability in altering daily activity patterns, and the sensitivity of these activity patterns to pharmacological manipulation (e.g., with antidepressants); and 4) the nature of the cognitive changes produced by stressors, and the role of fear and anxiety in mediating these cognitive changes. Recent research by Dr. Maier and others has made it clear that the stress response is not simply the result of exposure to a particular physical stimulus or condition, but rather is the result of a complex interaction between the event itself and the organism's expectations, about that event. The results of the current studies will broaden our understanding of the role of "stressor controllability" in the development of "coping" behaviors, and in the ability of stressed individuals to adapt to their environment.